DISSERTATION RESEARCH: The Homology of Dermal Ossifications in Reptiles

Most bone forms in one of two ways: through a cartilage model (endochondral
bone) or directly in the skin (dermal bone). Turtle shells and crocodile
scutes are formed of dermal bone, and although some aspects of their
development are well understood, it is not clear how their development is
initiated. Some researchers have proposed that these bones come from a tissue
called the neural crest; however, this origin has not been demonstrated. The
neural crest is a tissue formed in the ectoderm of the vertebrate embryo that
contributes the dermal bones of the skull. A separate embryonic tissue, the
mesoderm, contributes endochondral bone to the skull and forms the rest of the
skeleton. This study investigates gene expression as a means to trace the
contribution of neural crest and mesoderm to turtle shells and crocodile
scutes. Genes expressed in neural crest or mesoderm in other vertebrate
animals will be studied as potential markers for these tissues in turtle and
alligator embryos using RNA hybridization techniques. The importance of this
study for systematics lies in its assessment of the evolutionary developmental
origin of dermal bone. It may also aid in understanding the evolutionary
relationships of turtles to other reptiles.

This study harnesses approaches from evolutionary biology and molecular
biology to analyze a very old problem in new terms. Normally, studies using
these methods are performed on model systems, such as fruit flies, frogs,
chickens, or mice. By using turtles and alligators, this study expands the
knowledge and technical resources that can be used for the study of
evolutionary history. The doctoral student is a Hispanic female, her training
is broad, and she disseminates her work through seminars, courses, scientific
meetings, and the worldwide web.